Probing Membrane Structure and Dynamics with Near-Field Scanning Optical Microscopy

This new research project, supported in the Analytical and Surface Chemistry Program, focusses on studies of model lipid bilayers and actual biomembranes. During the tenure of this three-year continuing grant, Professor Robert Dunn and his students at the University of Kansas will examine nanometric domains of membrane bound proteins using a variety of microscopic methods. These techniques include confocal optical microscopy, scanning force microscopy, and near field scanning optical microscopy. The goals of this research are to use these methods to identify and characterize these nanometric lipid domains and to investigate the effect of bending strain on protein reactivity in these model membrane systems. Actual biomembranes derived from soybean protoplast will also be examined, and attempts will be made to identify active lipid microdomains in these materials. The function of small protein domains in biological membranes is not fully understood. Using a combination of state of the art surface microscopy techniques, Professor Dunn will identify and characterize these domains in both model lipid bilayers and actual biomembranes derived from soybeans. An understanding of the structure and function of these protein domains will be very useful in the subsequent rational design of membrane biosensors, in addition to increasing our understanding of protein function in membrane systems.